CISE Research Infrastructure: Ambient Computational Environments

EIA-9972843
Minden, Gary J.
Brown, Frank M.
University of Kansas Center for Research, Inc.

RI: Ambient Computational Environments

The University of Kansas (KU) will conduct research on Ambient Computational Environments (ACE) in which computational resources are available in offices, conference rooms, and other places and users are able to co-opt the use of these resources through authorization. User sessions are long lived and move among locations. To enable transitions and shared use, the ACE will include multiple interaction modes such as visual recognition, voice, gesture, etc. Research in techniques for access and interaction with environments, languages and run-time systems to support long-lived, mobile sessions, task negotiation among multiple user workspaces, context sensitive information retrieval, and disambiguation of speech and gestures will be performed. The PI team will work to increase recruiting of women and minorities at both the faculty and student levels.